Engineering Research Equipment Grant: Solidification Fluid Dynamics of Metallic Metals

An Engineering Research Equipment Grant will be used to develop a laboratory on Solidification Fluid Dynamics of Metallic Melts. The thrust of the research to be conducted in the laboratory will be on low Prandtl number convective flow visualization and quantitative experiments for computer code verification. The equipment consists of X-ray generator, image processor, and furnace.